Laser Doppler Velocimeter for Water Channel

This project introduces undergraduate students to the important measuring technique of laser-doppler velocimetry (LDV) which is now widely used in industry, especially for turbulence measurement. The project employs a single-channel system for use in a small water-flow test rig. For safety and for ease of setting up, the system uses a fiber-optic probe, which holds the main optics, permanently adjusted, in a self-contained unit. The laser power is 7mW, but the effective laser power for safety considerations is 3.5mW. Students ise the system first in the Introductory Fluids Engineering course (a combined lecture and laboratory class) and use it for more detailed measurements in the senior year Thermosciences Laboratory course.